Support for a Workshop on Reinforcement Learning

IRI-9529108 Mahadevan, Sridhar University of South Florida $29,550 - 12 mos. Support for a Workshop on Reinforcement Learning This is support for a workshop that will bring together researchers in one of the most actively studied paradigms in the study of human and machine learning, reinforcement learning (RL). A three-day meeting of up to 30 leading researchers from a variety of fields, including machine learning, neural networks, artificial intelligence, robotics, and operations research, will attend the meeting. The goals of the meeting include (1) Understanding limitations of current RL systems, and defining promising directions for further research; (2) Clarifying the relationships between RL and existing work in fields such as operations research; (3) Identifying potential industrial applications of RL research. A 10-15 page report on the findings of the workshop will be produced, along with a summary suitable for WWW posting. It is intended also to discuss the establishment of an electronic newsgroup to facilitate communication among disparate groups working in RL-related areas.